The Match Program: A combined Mathematics and Chemistry Curriculum

9354526 Wink The chemistry and mathematics departments of the University of Illinois at Chicago propose to develop a common curriculum for preparatory instruction in general chemistry and intermediate algebra. The course, dubbed "The MATCH Program" to reflect its origins, will be offered to students who require preparatory courses in order to succeed in college, because of deficiencies in the their educational background or because they are returning to their higher education several years after graduation from high school. The impetus for the curriculum comes from a recognition that such students, who may be very important in the composition of the nation's technical personnel in the future, will likely do better if these courses are combined so that mathematics and chemistry instruction reinforce each other explicitly. The proposed work will be conducted over a three year period, with a planned transition from a small developmental program through to one that can be used at other institutions. Cooperative learning strategies and laboratory program will be key elements of the instructional effort. The development, evaluation, and implementation plans all include close consultation with faculty from other schools, who have either had experience with similar programs or who recognize a similar need for this program for their students. Finally, a careful and rigorously controlled assessment program will be included. ***